Theoretical Methods Applied to Biomolecular Chemistry

In this project in the Physical Chemistry Program of the Chemistry Division Martin Karplus of the Department of Chemistry of Harvard University will study theoretical methods applied to biomolecular chemistry. Three problems in biomolecular chemistry are investigated using a combination of quantum mechanical methods to study bonds forming and breaking and molecular dynamics and Monte Carlo simulations to account for the many body effects: (1) The mechanism of transport through bacterial pores. (2) The mechanism of enzyme catalysis. (3) The mechanism of protein folding. This study is done in close interaction with experimental groups in the USA and in France ( Strassbourg) and will help elucidate basic mechanisms of function in biological systems.